Spectral Theory and Geometry of Locally Symmetric Spaces

DMS-0072299
Lizhen Ji

Symmetric and locally symmetric spaces are important
objects in mathematics and arise from many different
subjects such as Lie group theory, representation theory,
number theory, differential geometry, algebraic geometry,
and dynamics. Many natural such spaces are noncompact.
For example, the space of positive definite matrices of
determinant one is a noncompact symmetric space, and the
moduli space of all elliptic curves is a noncompact locally
symmetric space of finite volume which is one example of
Shimura curves and plays an important role in the recent
solution of the last Fermat's theorem. To understand the
geometry and analysis of such noncompact spaces, an important
problem is to study their compactifications. One of the common
themes of the four projects in this proposal is to understand
refined structures of the compactifications and their relations
to the spectral theory of the spaces. For example, for locally symmetric spaces, geodesics which are eventually distance
minimizing can be used to study the compactifications and
also to understand the generalized eigenfunctions of the
continuous spectrum, specifically, the scattering matrices.
Compactifications of symmetric spaces play an important role
in understanding behaviors at infinity of the joint eigenfunctions
of the invariant differential operators and the matrix
coefficients of representations. The compactifications
of globally and locally symmetric spaces have mainly be
studied separately before, and an important feature of
this proposal is to study compactifications of both types
of spaces using a similar approach.

Mathematicians study geometric shapes and their structures. One
such collection of shapes consists of objects called manifolds.
If a drum is pictured as a particular type of manifold then the
tones produced by the drum can be thought of as mathematical
objects associated to the manifold. For a particularly important
collection of drums there are two kinds of tones: the discrete (or
isolated) ones and the continuous families. The PI intends to
investigate a variety of mathematical structures on these drums or manifolds.